More Than Meets the Eye -- Exploring the Invisible Universe

As the world's largest single-dish radio telescope, Arecibo Observatory in Puerto Rico attracts thousands of visitors each year, of all ages and from many countries. Pride in the Observatory has caused local Puerto Rican organizations to contribute the funds necessary for the construction of the new Arecibo Observatory Visitor and Educational Facility. Cornell University, in behalf of the National Astronomy and Ionosphere Center, is requesting $774,463 form the NSF-ISE over a two year period to develop and implement the exhibits and educational programs which will give life to the Educational Facility. Within the facility, we propose establishing an educational program centered on the theme "More Than Meets the Eye", which will reflect the general idea that we can study our world with tools which extend our direct sensory experience. The proposed program will explore the unseen sky and, in particular, the objects that fall under the scrutiny of a radio telescope. Specifically, the program will introduce the visitors to the electromagnetic spectrum as a means of exploration, will offer a framework of basic astronomy and atmospheric science, and will provide understanding of the function and operation of the Arecibo radio telescope. Some of Arecibo's most exciting new discoveries in the fields of radio astronomy, solar system radar astronomy and astomospheric science will be presented so that visitors can experience the dynamic nature of science. ***